Science, Technology, Engineering and Mathematics Teaching in Rural Areas using Cultural Knowledge Systems

The Discovery Research preK-12 program (DRK-12) seeks to significantly enhance the learning and teaching of science, technology, engineering and mathematics (STEM) by preK-12 students and teachers, through research and development of innovative resources, models and tools. Projects in the DRK-12 program build on fundamental research in STEM education and prior research and development efforts that provide theoretical and empirical justification for proposed projects.The Cultural Connections Process Model (CCPM) will formalize, implement, and test a process model for community-engaged educational resource development for Indigenous populations. The project will collaborate with Indigenous communities to create educational resources serving Inupiaq middle school students and their teachers. Research activities take place in Northwest Alaska. Senior personnel will travel to rural communities to collaborate with and support participants. The visits demonstrate University of Alaska Fairbanks's commitment to support pathways toward STEM careers, community engagement in research, science teacher recruitment and preparation, and STEM career awareness for Indigenous and rural pre-college students. Pre-service teachers who access to the resources and findings from this project will be better prepared to teach STEM to Native students and other minorities and may be more willing to continue careers as science educators teaching in settings with Indigenous students. The project will contribute to a greater understanding of effective natural science teaching and science career recruitment of minority students. The project's participants and the pre-college students they teach will be part of the pipeline into science careers for underrepresented Native students in Arctic communities. The project will build on partnerships outside of Alaska serving other Indigenous populations and will expand outreach associated with NSF's polar science investments.

CCPM will build on cultural knowledge systems and NSF polar research investments to address science themes relevant to Inupiat people, who have inhabited the region for thousands of years. An Inupiaq scholar will conduct project research and guide collaboration between Indigenous participants and science researchers using the Inupiaq research methodology known as Katimarugut (meaning "we are meeting"). The project research and development will engage 450 students in grades 6-8 and serves 450 students (92% Indigenous) and 11 teachers in the remote Arctic. There are two broad research hypotheses. The first is that the project will build knowledge concerning STEM research practices by accessing STEM understandings and methodologies embedded in Indigenous knowledge systems; engaging Indigenous communities in project development of curricular resources; and bringing Arctic science research aligned with Indigenous priorities into underserved classrooms. The second is that classroom implementation of resources developed using the CCPM will improve student attitudes toward and engagement with STEM and increase their understandings of place-based science concepts. Findings from development and testing will form the basis for further development, broader implementation and deeper research to inform policy and practice on STEM education for underrepresented minorities and on rural education.